Ergodic Theory

Title: Ergodic Theory of Dynamical Systems.

The project proposes several research problems in Ergodic Theory of
Dynamical Systems. The theory is in a period of great activity, fueled
by both the necessary internal coherence and its many interactions with
other domains of mathematics or of mathematical Physics. The projects
anticipates developments on three topics. One is parabolic dynamics. The
precise problems of interest here are the characterization of infinite
invariant measures for horocyclic flows on cover spaces, the new
theorems of convergence in average along orbits which appear in
connection with these measures, the speed of convergence in these
theorems and the possible applications of all these results. The second
topic is almost hyperbolic dynamics. This covers questions where the
lack of hyperbolicity is precisely localized. Some of the previous
questions are related to frame flows, or more generally compact group
extensions of hyperbolic flows. Another example is the geodesic flow on
rank one manifolds, where the nonhyperbolicity is concentrated on a
singular invariant closed set. There is some ongoing progress about the
Martin boundary and the geometry at infinity of the universal cover of a
rank one manifold. The third topic concerns several ergodic theoretic
questions related to Quantum Chaos.

In general, the evolution of a dynamical system is represented by the
action of a one parameter group -the time- over a space of
configurations. Ergodic theory is the study of global statistical
properties of such actions. The two extreme cases have been flourishing
successes of last century mathematics. On the one side, the elliptic
case, when the motion is periodic or quasi-periodic gave rise to KAM
theory. The algebraic simple model is the translations on a compact
group. On the other extreme, the hyperbolic case is the one where the
trajectories diverge exponentially. It is also well understood now, with
extraordinarily precise statistical results. The standard models are
the geodesic flow in negative curvature or the algebraic action of an
integer matrix on the torus, when no eigenvalue has modulus one. Many
interesting programs today try to develop new tools to understand the
vast territory between the two extreme cases. As summarized above, the
propositions of this project explore some possible paths. In spite of
their apparent diversity, they have common threads. An unexpected one
is the role of invariant distributions, which appear for different
reasons in several of these a priori unrelated questions.